Mathematics Instruction Laboratory/Equipment

A computer-based, interactive instructional laboratory is being developed to enhance the curriculum in College Algebra, to institute new instructional methods, and to develop instructional materials for enrichment. To meet the instructional goals, the laboratory is equipped with twenty- four workstations linked in a token ring network managed by a network server that will maintain commercial software and exercises developed by the faculty. The networked system provides a wide range of problem solving and graphing capabilities. The laboratory provides the faculty with a new instructional vehicle and affords the student the opportunity to practice math skills in a non-traditional manner and explore mathematics beyond normal limits in an efficient, non- threatening environment. Instruction is further enhanced by opportunities for enrichment and a new emphasis on classroom/laboratory demonstrations incorporating active learning strategies.